and Literature

The widespread belief that science and imaginative literature are "two cultures," incommensurable ways to different kinds of knowledge, emerged in the 19th century, breaking up the Enlightenment dream if arts and sciences harmoniously progressing as a joint guide to the perfection of humanity. Professor Joravsky, in his analysis of major writers and scientists in France and Russia from the 1860s to the early 20th century is attempting to explain the emergent rift between literary and scientific culture. He is using a comparative approach in order to bring out the interaction between ideas and social context. He is illuminating the role of political ideologies by examining the transformation of positivism from a visionary ideology to a limited philosophy of science. He is paying special attention, in this regard, to the problem that the literary imagination presents to those of positivist inclination. Prior to beginning this grant, the Professor Joravsky has devoted his attention to the French side of the comparison. During the course of this grant, he is concentrating on the Russian side and is carrying the comparative study to the mid-20th century.